Development of an Undergraduate Particle Technology Teaching Laboratory

This project enables students to learn physical size characterization of particles, real time data acquisition, data manipulation and graphic display using a computer controlled particle size analyzer This project broadens and strengthens the educational exposure of both the environmental engineering and the occupational safety and health students by creating a modern particle technology teaching laboratory. This award is being matched by an equal amount from the principal investigator's institution.